Network Traffic Analysis and Multiresolution Schemes for Homogenization

An NSF-Industrial Postdoctoral Fellow, Anna C. Gilbert, carries out research jointly in the Department of Mathematics at Yale University and AT&T Labs-Research. The Faculty Mentor at Yale is Ronald Coifman, Professor of Mathematics, and the supervisor at AT&T is Dr. Walter Willinger. We envisage two general areas of research, both of which are of direct interest to AT&T: (1) wavelet techniques for analysis and performance management of network traffic, (2) wavelet techniques for homogenization of differential equations. The common element of these two areas is the use of wavelets to decompose a problem into many scales and to analyze which scales are crucial to solving the problem. The research which will be conducted with Dr. Walter Willinger at AT&T will include using wavelets to investigate the physical model of Willinger, et al, at a basic level. We want to model and to tune queues, switches, and other component network components in wavelet terms and then to derive the properties, in wavelet terms, of the corresponding self-similar behavior. There are so many data sets available and in such detail that we want to extract more detailed and more basic information than just the Hurst parameter. We want to build a structural model of the data and the networks which produce that data. The research which will be conducted with Prof. Ronald Coifman at Yale University will include extending the methods developed in Anna C. Gilbert's thesis. We will construct multiresolution methods for the reduction and homogenization of partial differential equations. We envision using these techniques in many different applications. In particular, we would like to use these homogenization techniques to reconstruct a rough surface off which electromagnetic waves are scattered. We would also compare the MRA homogenization methods for n-dimensional elliptic PDEs with the classical theory. Anna Gilbert completed her thesis under the supervision of I. Daubechies at Princ eton University in June, 1997. In it she compares the wavelet techniques for homogenization with classical analytical techniques, develops a wavelet method for homogenizing nonlinear ordinary differential equations, and applies these methods to a reaction-diffusion model. This GOALI project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).